Biotechnology in Latin America: Its Interamerican Context and the Role of Scientific Societies in its Development

The American Association for the Advancement of Science and the American Society for Microbiology will jointly prepare a report on the state of biotechnology in Latin America. The report will identify Inter-American cooperative activities that may be useful for U.S. scientific societies, universities, and biotechnolgy companies. The report will describe and analyze national and regional experiences that address the three critical constraints currently facing the basic and applied biological sciences in Latin America: l) the lack of capital resources and trained personnel; 2) unavailability of materials and equipment; and 3) limited information available to the scientific community.